Technical Economic Model for Evaluating Alternative Technologies

The research develops the conceptual framework and preliminary implementation of a technical economic model for evaluating the cost-effectiveness and economic implications of alternative technologies. A database from an operational dynamic input-output model of the U.S. economy, plus some new technological projections, are used with the optimization model for the computation of several scenarios. One objective is to introduce (a) more dynamic elements into the input-output model, and (b) other criteria where cost-minimization is not the operational basis for the choice among technologies. A second objective is to demonstrate the capacity to absorb process level data effectively into the data work. At least two scenarios are to be computed with the model, using the new data incorporated into the existing database, to demonstrate the selection among technologies and to analyze the underlying reasons.